XVIIIth ICPEAC International Travel Grant; Aarhus, Denmark; July 21-27, 1993

Professor Bartschat has requested, on behalf of the US committee of the International Conference on the Physics of Electronic and Atomic Collision, travel funds so that American graduate students and post-doctoral associates can attend the meeting in Aarhus, Denmark, 21-27 July 1993.